Collaborative Research: A High-resolution Record of Productivity and/or Ventilation of the Northeastern Pacific from Soledad Basin, Baja California

This study will use multiproxy study of cores from the Soledad Basin off Baja CA to determine if bottom water oxygen changes over the last 10,000 years are caused primarily by productivity changes in surface waters or changes in ventilation of subsurface waters. Proxies to be measured include planktic foraminifer assemblages, oxygen isotope ratio of Globigerina bulloides and N. pachyderma, sediment Mo abundance, and Mg/Ca in benthic foraminifers. Chronology will be provided by AMS 14C and 210Pb. Sample resolution for most proxies will be 100 years. Mo measurements and sea surface temperature estimates will be done at multidecadal sampling resolution.